"Conference: 2006 Plant Cell Walls Gordon Conference Will be Held on July 30-August 4, 2006 at the University of New England, Biddeford, Maine."

Title: 4th Gordon Research Conference on Plant Cell Walls

PI: Nicholas Carpita, Purdue University
CoPI: Debra Mohnen, University of Georgia
Nancy Grey, Gordon Resarch Conference

The Fourth Gordon Research Conference on Plant Cell Walls will be held July 30-August
4, 2006, at the University of New England, Biddeford, Maine. Cell walls constrain the
final sizes and shapes of plant cells, and therefore the stature and form of plants. Plants
invest over 10% of their genomes in building their cell walls.

Intellectual Merit:
This conference will address the major advances in our understanding of the composition,
synthesis, and architecture of plant cell walls and their dynamics during growth and
differentiation. It will bring together international scientists from academia, industry and
government labs to share the latest fundamental scientific breakthroughs in plant cell wall
biology. As cell walls are an enormously important source of food, feed, fiber and
medically active compounds for humans and animals, a special session will focus on the
advances made in the medical and practical uses of plant cell walls for human society.

Broader Impacts:
To foster interdisciplinary research, a special effort has also been made to invite speakers
from outside the field of plant biology. This award will be used to support participants with emphasis on younger scientists, minorities and underrepresented scientists to participate in the meeting and to advance their careers in plant biology.

In the tradition of Gordon Conference, material presented is considered priviledged, for discussion among participants but not for publication. This policy stimulates creative interchange at the conference.